Presidential Young Investigator Award: Communication Networks and Optimization Methods

This Presidential Young Investigator proposes to use his PYI award to investigate new methods to analyze the performance of communication protocols by looking for methods that aggregate or decompose states of a protocol (along boundaries that arise form its structure and analyze the dynamics between the resulting subsets of states. In addition, he is studying dynamic routing of information in deterministic network models, scheduling conversation between communication stations, and the topology of design of networks. He is also studying local search optimization algorithms such as simulated annealing.